A Distributed Physically-Based Modeling Approach to Flash Flood Forecasting in Semi-arid Regions

The project will study the accuracy of the distributed, physically-based model KINEROS as applied to a semi-arid watershed and as used for the forecasting of flash floods. In semi- arid and arid watersheds flash floods are frequent producing loss of life and property, and warning systems (FFWS) are some of the tools used to mitigate these effects. The current FFWS do not include recent advances in the methods for hydro-meteorological data collection and analysis that makes real-time warning systems possible. This study will examine existing quality rainfall-runoff data from the 150 square kilometers, semi-arid Walnut Gulch Experimental Watershed, the effects of small scale variability of rainfall, the characteristics of the runoff processes at the watershed scale and its implications for flash flood forecasting.